RFID Information Systems Security (INFOSEC) for Nation-wide Engineering Education

Computer Science (31)

Radio frequency identification (RFID) information systems provide information to users about objects with RFID tags. RFID systems require the application of information systems security (INFOSEC) to protect the information from tampering, unauthorized information disclosure, and denial of service to authorized users. The goal of this project is to improve the quality of RFID INFOSEC education by creating new undergraduate learning materials and teaching strategies that address basic RFID principles and RFID security. This work has the potential to broaden the reach of RFID INFOSEC education nationwide and to influence industry RFID security policies and standards.